Workshop for Model Reduction in Reactive Flows; Spring 2009; Notre Dame, IN

This award supports the Workshop on Model Reduction for Reactive Flows held at the University of Notre Dame on March 30-April 2, 2009. The principal theme of the workshop is mode reduction for combustion modeling in the presence of advection and diffusion. Development of rationally deduced models of low dimension for this situation would be of transformational importance for the direct numerical simulation of most practical engineering combustion devices (such as gas turbine combustors and internal combustion engines) and predictive modeling of critical engineering systems. The goal of the workshop is to promote interactions among a diverse group of researchers, including applied mathematicians, scientists and engineers.

The workshop encourages and supports broad participation by students, postdocs, and junior faculty.

Workshop's web page:
http://cam.nd.edu/upcoming-conferences/spring2009/index.shtml